Northern Rockies Center for Applied Computational Science

Physical and intellectual infrastructures in computational sciences will be developed as part of a long-term effort to stimulate new collaborations and research opportunities utilizing high-performance computing as a necessary tool among a diverse group of researchers. The physical infrastructure will consist of a low-cost cluster of Linux workstations for education, training, and development of activities that utilize high-performance computing, coupled with partnerships with the Arctic Region Supercomputing Center, the North Carolina Supercomputing Center, and the University of Texas Health Science Center at San Antonio. Most importantly, intellectual infrastructure will also be developed that provides a highly proactive environment towards training and aiding researchers in various disciplines to utilize high-performance computing methods to enhance their existing research programs and to establish new research approaches. It is anticipated that the project will result in a physical computational infrastructure, a center of expertise in computational infrastructure, a center of expertise in collaborative computational sciences, and a catalyst for obtaining sustained funding from a wide range of resources. Such environment, the Northern Rockies Center for Applied Computational Science, will act as a focal point to stimulate numerous opportunities for researchers to branch out in new directions that benefit with increased computational literacy.